A Modern Iinventory of the Ppolyclad Ffauna of the Caribbean

Abstract
DEB 0412932
Marian Litvaitis

The focus of this project is to document the diversity of a group of
marine, free-living flatworms throughout the wider Caribbean.
Individual flatworm specimens will be hand-collected from several
sites, and associated field data and images will be linked to each
specimen. Students working with Leslie Newman and accompanying her on
sampling trips, will gauge patterns of distribution of flatworms,
receive training in underwater photography, and gather specimens for
microscopical and molecular studies. She will also train students in
curatorial techniques. Working in the laboratory of Marianne Litvaitis
at the University of New Hampshire, the students will concentrate on
histology, systematics, DNA techniques, graphics, and database
construction. Commonly, positive species identification requires
sectioning the animals. DNA sequences will be used as molecular
barcodes for each species and to address questions of within-group
relationships. Detailed taxonomic information, tissue vouchers, DNA
sequences, and images of whole, live animals and of histological
sections will be collected for each species and included in a
web-based, searchable database. Additional products of the proposed
study include CD-ROM and hard copy versions of an identification guide
that will be available in English and Spanish, and a separate marine
flatworms web page specifically designed for K-12 students.

The broader significance of the project includes an extensive training
component ranging from the undergraduate to the graduate level. Two
minority graduate students have been recruited. Additional outreach and
educational components include guest lectures, hands-on demonstrations,
and marine field trips to stimulate interest in K-12 students for
marine invertebrates in general. Although many of these flatworms are
prominent members of coral reefs, little is known about their
biodiversity. This is surprising considering that some of these worms
have been shown to prey on commercially important bivalve species and
thus, impact the aquaculture industry. Other species in this group have
proven to be toxic to fish. Finally, preliminary studies have shown
that some of these flatworms contain biopharmaceuticals and may be used
as a vehicle to accumulate anticancer agents. Therefore, a thorough
understanding of their biodiversity will provide a basis for many other
fields of biology.